Development of Non-video Based Realtime Motion Analysis System with Application to Rehabilitation

9411741 Kolen The focus of this Minority Research Initiation Planning Grant is to explore the possibility of designing a low cost non-video based motion analysis system that can be used as a motion analysis tool and/or be incorporated as a closed loop feedback control scheme for prosthetic motion control. By obtaining the real-time spatial orientation of individual body segments, a computer generated rendering of the whole body movement is available for real-time or post analysis. There is a large potential application for this type of motion analysis ranging from gait analysis and rehabilitation performance evaluation, through sports medicine and Olympic training. The specific activity to be undertaken under this planning grant is the preliminary study of a single two dimensional sensor module. A follow- on proposal for research to study a complete magneto- resistive sensor is planned for submission. ***